Statistical Graphics Laboratory Equipment

Students are benefiting from a new course in statistical graphics because of a new laboratory equipped with AT&T microcomputers. Students are gaining a basic knowledge of available hardware and software tools. Emphasis is placed on SAS/GRAPH ad on the use of the S- system for development of their own procedures for statistical graphics. The institution will provide funds to match this grant.